FDSS Track 1: Integrating Research and Education in Magnetosphere-Ionosphere-Atmosphere Coupling at Clemson University

This award supports the creation of a new tenure-track faculty position focused on Sun-Earth connections and space weather research. It offers students at the university exposure to research opportunities and new curricula on this topic. Space weather has numerous societal implications, including hazards to the power grid, aviation, satellites, radio communications, and navigation. However, the number of qualified graduating students in this area is not sufficient to meet the future demand for trained space weather researchers and application providers. This award will thus contribute significantly to addressing the needs for space science and space weather expertise.

The focus for the new FDSS hire is on the integration of research and education in magnetosphere-ionosphere-atmosphere coupling. The scientific objectives are to obtain a more comprehensive understanding of the physical processes that govern the prevailing space weather conditions in the uppermost reaches of Earth’s atmosphere. Broader impacts include educating the next generation of leaders in a field of increasing importance for a technological society. Through new courses and by leveraging existing outreach programs, the new hire will significantly increase the university’s ability to engage the public and students in space sciences.